Mathematical investigation of light propagation in tissues for physiological monitoring and tissue imaging

Abstract: DMS-0504858, A Kim, University of California - Merced

Title: Mathematical investigation of light propagation in tissues for physiological monitoring and tissue imaging

We study light propagation in tissues for biomedical
applications. In particular, we study three problems:
i) inverse problems for physiological monitoring, ii)
fluorescence imaging, and iii) direct and inverse
obstacle scattering in tissues. For the physiological
monitoring problem, one seeks to detect changes in
tissue structure and composition, especially in
superficial tissue layers of organs where most
pre-cancers form. For the fluorescence imaging problem,
tumor-seeking fluorescent molecules are introduced into
deep tissues and are excited by a laser. By detecting
the emitted fluorescent light, one wishes to determine
the support, and fluorescent efficiency and lifetime.
For the direct obstacle scattering problem, one seeks
the light scattered by an obstacle (e.g. a tumor)
inside tissue due to a light source. For the inverse
obstacle problem, one seeks to determine distinguishing
characteristics (e.g. support, strength, etc) about the
obstacle from scattered light measurements. The key
challenge in all of these problems is to understand the
complicated light-tissue interactions because tissues
multiply scatter light strongly. This proposed research
aims to develop more accurate theory to predict and
interpret diagnostic data. In particular, this research
begins with the theory of radiative transport for light
propagation in tissues. Computational methods for
boundary value problems of the radiative transport
equation will be developed to solve the direct and
inverse problems proposed here. We pay special
attention to computing quantitative resolution
estimates for these three problems.

Many of the significant advances in biology and
medicine correlate directly with technological advances
in biomedical imaging systems. In particular,
laser-based imaging systems offer great potential for
safe, portable and economical monitoring and imaging of
tissue function and health. This research project
involves the theoretical and computational study of
laser-based imaging of biological tissues. In
particular, we seek mathematical results that impact
directly applications in physiological monitoring,
fluorescence imaging and direct and inverse obstacle
scattering. The interaction of laser light with
biological tissues is complicated to model because
tissues scatter light very strongly. Hence, the
overarching goal of this research project is to gain a
better understanding of multiple scattering of light in
tissues.